Physical Modeling of Architectural Environments

Aim: Reinforce learning between analytical, empirical and case study methods of architectural study. Comparison of analytical results (algorithm and/or computer simulation) to physical testing of scale models and field measurements of existing building. Major Instruments: Microcomputer with data acquisition interface, data logging capability and interface to basic and spreadsheet software. Computer output to VGA and composite video for VHS video tape documentation. Computer will read and record environmental data from sensors attached to scale architectural models under controlled conditions. Remote data monitoring equipment will be used for case study measurements. Software for computer simulation, data translation and analysis as well as instrument control also employed. Application: Scale architectural models are suitable for schematic design level study of daylighting, solar access, cross ventilation, acoustical and other technical areas influenced by the architect's design decisions.